Use of Real-Time NWS Products in Introductory and Intermediate Course

The Department of Geography is purchasing satellite receiving and data display equipment to incorporate real-time weather maps into the meteorology courses for both science and non- science majors. Students are making use of weather maps as part of their laboratory experiences as well as in observing the daily weather variations that occur. The significance of this project is that it: 1) incorporates current atmospheric conditions into the learning experience for the students, thereby allowing the students to become directly involved with the subject matter of the course, 2) documents the relevance of the science to the non-science student, 3) stimulates the curiosity of the students surrounding atmospheric behavior, and 4) provides non-science students with the opportunity to collect and analyze data in an introductory meteorology course.